The Images of Chemistry

A series of video images will be produced that can be used in a variety of formats to enhance student-teacher and student-subject matter interactions in chemistry education. The video, which extends the range of video images shown on the Periodic Table Videodisc produced by the same developers, will show primarily chemicals, their reactions and their practical applications. These videodiscs will allow a great deal of descriptive chemistry to be introduced into beginning courses in an interesting way. In addition, some hard-to-visualize theoretical constructs of chemistry will be included. Historically important people, artifacts, experiments and documents will be shown including the contributions of those from groups underrepresented in chemistry. The completed images will be distributed, probably on videodisc, through Journal of Chemical Education: Software and will also be available for future publication in other formats. Example lessons based on the published videodiscs in both computer-interactive and stand alone modes will be provided. The materials will be suitable for use in grades 8-12 and also in introductory courses in two and four year colleges.